Buoyancy and Morphological Studies of Antarctic Notothenioid Fishes

Eastman 9416870 This research centers on the evaluation of organismal diversification in Antarctic fishes of the perciform suborder Notothenioidei. Notothenioids are the dominant fishes by number and biomass in all inner shelf areas of the Southern Ocean. They are an evolutionary novelty - the only known example of a fish species flock in a marine habitat. Although derived from a benthic stock lacking swim bladders, notothenioids have diversified into most water column habitats. Nototheniods display the wide scope of organismal diversification in an ecosystem historically underutilized by non-notothenioid fishes, and they are a striking example of the nature of Antarctic marine biodiversity. Primary objectives of this study are: (1) to evaluate organismal diversification with emphasis on neutral buoyancy, reduced density (compared to the pleisomorphic benthic condition) and the associated morphology in members of the families Nototheniidae, Channichthyidae and Bathydraconidae; (2) to explore the evolution of neutral buoyancy and reduced density by mapping these and other morphological features on cladograms independently derived from other information; (3) to determine whether the diversification of buoyancy (life history) types and the associated morphology are reflective of the phylogenetic history of various notothenioid clades or are related to environmental adaptation and (4) to add new buoyancy and morphological information to the existing suites of characters available for phylogenetic analysis of notothenioids. In addition to elucidating the morphological basis for evolutionary changes in buoyancy, this study will provide insight into how notothenioids diversified to occupy a variety of water column habitats in the Southern Ocean.